Pressure-temperature Constraints and Fluid Evolution as Determined from Fluid Inclusions in the Getchell, Nevada, Carlin-type Gold Deposit

North-central Nevada contains one of the largest gold- producing districts in the world Sixty million ounces of gold (Knutsen and Wilson, 1990) have been identified in "Carlin-Type "deposits in the Carlin trend, one of several mineralized trends in the district. The fundamental relationships between igneous and tectonic activity in this region have yet to be fully understood. An important consequence of crustal processes active in this region is the massive concentration of gold. By resolving those processes responsible for gold concentration we can formulate models describing ore genesis in Carlin-type deposits and improve our understanding of geological processes active along this ancient continental margin. This research proposal outlines a detailed fluid inclusion study to determine the pressure-temperature conditions during gold precipitation at the Getchell deposit, a typical Carlin-Type system, and to document the physical and chemical nature of fluids that transported and precipitated gold mineralization.